Research Experiences for Undergraduates: Autonomic Computing Research at FIU

The REU Site at Florida International University (FIU) will provide
participants with a venue to directly participate in state-of-the-art
research while exposing them to graduate school life and work in
academia and industrial research labs. REU students will participate in
team-oriented projects involving several areas of autonomic computing,
including self-management in mobile computing, autonomic anomaly and
misuse detection, adaptive network traffic monitoring and management,
autonomic storage systems, autonomic secure operating systems, and
testing of autonomic computing systems. The REU participants will each
learn from their team-members and advising faculty, maturing as
independent thinkers and developing critical communication, social, and
team-work skills. The Site's faculty will continue their mentoring
relationships with students after the completion of the summer program
to ensure that each project is completed and that each participant will
have the support needed to make the transition to graduate school.